Workshop on Intelligent Systems Research to Support Geosciences and EarthCube Mission

This workshop will serve as a conduit for jump-starting synergistic research advancing our understanding of the Earth system through innovative cyber-infrastructure that pushes the envelope on information systems research. The workshop will help synthesize a vision and needs for intelligent systems research that will provide new capabilities envisioned by EarthCube to advance geosciences. The workshop will catalyze a community and research agenda in the emerging area of Discovery Informatics grounded on geoscience requirements.

Participants will discuss how to tackle problems in heterogeneous data integration and visualization (e.g., hand-made sketches, aerial imagery, field-data repositories, stakeholder interviews), ontological reasoning with scientific metadata and mathematical models (e.g., representing uncertainty, simulation predictions, evolving theories). The salient themes arising from discussions at the workshop will be articulated in detail in a final workshop report, which will be made available for the broad research community.